Spectroscopy Characterization of Metastable Intermediates in Relation to Surface Elementary Reactions

This project is in the area of Analytical and Surface Chemistry and in the subfield of surface science. Professor Zaera will study metastable adsorbates chemiabsorbed on single crystal surfaces using a host of spectroscopic methods. This research will focus on detecting highly hydrogenated carbonaceous fragments on clean metal surfaces using reflection-absorption infrared spectroscopy during catalytic reactions. The results from this project will be useful in understanding catalytic hydrocarbon conversion reactions and in designing new catalytic processes.